NSF-CNPq Collaborative Research: Automatic Configuration and Monitoring of Component-Based Distributed Systems

Proposal Number: CCR-9970139
TITLE: NSF-CNPq Collaborative Research: Automatic Configuration
and
Monitoring of Component-Based Distributed Systems

PI: Prof. Roy H. Campbell
CO-PI: Prof. M. Dennis Mickunas

Component technology has appeared as the most promising solution for the
problem of effective software development for the coming decades. It
supports
the construction of sophisticated systems by assembling together a
collection
of off-the-shelf software components with the help of visual tools or
programmatic interfaces. However, existing component architectures lack
support to analyze and exploit the nature and magnitude of interactions and
dependencies among components.

The objective of this research is to apply the knowledge about component
requirements and dependencies to permit the automatic configuration of
software systems with little or no intervention from system administrators
or
users. It focuses on developing formal models and software tools for
reifying
the interactions between components. With these tools, the project will
produce (1) an infrastructure for automatic configuration of distributed
component-based systems and (2) a generic framework for collecting,
consolidating, analyzing, and visualizing qualitative and quantitative
information about component interaction.

The research will offer an important software infrastructure which has been
neglected by existing object and component architectures. It has a great
potential impact on the reliability, flexibility, and automatic
adaptability of next generation distributed systems.